Action Research: Purposes, Practices, Possibilities - Creating Links to National Science and mathematics Reform...

This proposal links action research with three educational reform initiatives for this decade; the push for new professional roles for teachers, the revitalized reform movements in mathematics and science education, and the need to reframe the current practices in teaching and assessing learning along a more constructivist approach. Action research in schools is usually undertaken by teachers to improve their own practices; it can make significant contributions to each of these agendas, although it has been under-utilized. This project will develop and disseminate the rationale and knowledge of how action research can support real change in classroom practices. It has been used extensively in Australia and the United Kingdom to bring teachers' professional knowledge to bear on educational development and reform initiatives, and in the United States for major reforms in the teaching of reading and writing. Despite significant local projects, this approach remains largely outside of mainstream science and mathematics reform efforts. This project will bring together for one weekend a working conference of 35 participants who represent multiple perspectives in the fields of math, science, teacher development, and research methodology, and who play key roles in educational reform: teachers, school administrators, research methodologists, policy makers, and teacher educators. They will define action researcch as it applies to American education, identify its enabling conditions, and create a vision of its potential to support renewal in science and math education. This project will create a strong network of colleagues knowledgeable about how action research can faciliate reform; ongoing telecommunications among participants as the project is developed and as follow-up to new initiatives; a set of recommendations for ways that action research can suport reforms in science and mathematics education, disseminated through professional organizations; a published monograph written by conference participants that encompasses current theory and practice of action research, which will be delivered to 1,000 leaders and made available for purchase; and a new methodology for linking small, context-specific research by teachers for the purpose of informing larger educational decision-making.